EAGER: Iron-sulfide based Molecular-wires for Enhancing Charge Transport of Enzymatic Electrode Assemblies

1243311
Fernando
Intellectual Merit:

The overall effectiveness of enzyme-based electrochemical devices such as biosensors and fuel cells are heavily dependent on the ability of the molecules that attach enzymes to the electrode to successfully harvest and transport charges from the outer oxidizing point (enzyme active-site) to the inner electrode surface. Current technology uses a series of ancillary molecules (with the correct prosthetic groups) to tether the essential electron mediator and the enzyme complex on to the surface of an electrode. Unfortunately, the inherently low conductivity of presently known organic tethering molecules makes the electron transport process highly constrained; therefore, contributing to fuel cells with low power density and sensors with low sensitivity. The lack of an effective molecular wiring system that can allow unimpeded charge transport is a significant problem and hinders harnessing the tremendous potential bioelectronics devices have to offer.

The overall goal of this proposal is to evaluate whether it is possible to replace the current complex wiring
system with a single molecule that has the ability to mediate electron shuttling between the coenzyme and a metal surface, and that has the correct prosthetic groups to latch simultaneously onto the metal surface and the enzyme complex.

Inspired by the natural electron transport mechanism that occurs in the mitochondrial surface, we hypothesize that the glucose dehydrogenase-nicotinamide adenine dinucleotide (GDH-NAD) apoenzymecoenzyme system could be directly attached onto a gold electrode using synthetic iron-sulfur [Fe-S] complexes. Iron-sulfur complexes are well known to transport electrons generated by glucose oxidation in eukaryotic cells. The rationale is that the thiol groups of the [Fe-S] complex would attach onto the gold surface via covalent linkages while iron will coordinate with heterocyclic nitrogen atoms in imidazolediazine moieties of NAD attaching the apoenzyme-coenzyme complex on to the electrode.

The hypothesis will be tested via the following Specific Objectives:

1. Evaluate the effectiveness of tethering GDH-NAD+ complex onto a gold electrode via [Fe-S]
surrogates. This will be done by synthesizing simple forms of [Fe-S] complexes, evaluating the
effectiveness of binding the S end onto the Au electrode and the Fe end to the NAD via
quartz crystal microbalance (QCM) studies, and elucidating the current-voltage (CV) behavior
of a developed electrode via potentiometric and current sensing atomic force microscopy
(CS-AFM) studies.

2. Elucidate electrochemical phenomena occurring at the electrode surface in the presence of the
fuel oxidant. The electrochemical response of the novel simplified electrode will be compared with the
conventionally wired electrode in the presence of glucose. The parameters studied will
include CV response and fuel-consumption/electrode kinetics.

Broader Impacts and the Appropriateness of the Project for EAGER Funding:

The proposed research is high-risk since direct attachment of NAD to a metal surface via a surrogate
known to act as a redox mediator, to the best of our knowledge, has never been attempted before. If
successful, the research will provide a transformative impact on the bioelectronics area by alleviating one
of the most intricate bottlenecks impeding development of effective bio-electronic devices, i.e.,
constrained charge transport. Moreover, if successful, this research will lay the foundation for mimicking
the first step of the electron transport chain which in turn may take us a step closer to developing a
synthetic version of the most effective power plant known ?mitochondria!

A high-risk proposition of this nature will not fit into a regular proposal due to lack of preliminary data.
However, a potentially high-payoff project of this caliber is a “good fit” for an EAGER